Research Initiation Award: Modeling, Rendering and Animation of Implicit Surfaces

Implicit surfaces are shapes described by the points where a function is zero. Sphere tracing is a recently developed method for rendering implicit surfaces that operates on implicit functions that indicate the distance to the implicit surface. Such implicit functions are developed for common modeling primitives, CSG operations, some blends, and some domain transformations which deform objects, but many other surfaces, such as offset surfaces, and other operations, blends and deformation remain. Sphere tracing is a robust efficient implicit surface rendering algorithm. It ray traces implicit surfaces by tracking along each ray by the distance to the implicit surface, as reported by the implicit function. This iteration converges on the first ray-surface intersection. Sphere tracing also provides an area sampling method for antialiasing. Enhancements to sphere tracing include the sphere buffer which allows sphere tracing to capitalize on spatial coherence, spatial partition, and a method for eliminating all iteration from implicit surface rendering. Also addressed are the problems of animating implicit surfaces, particularly the consistent texturing of an implicit surface as it deforms, possibly changing genus.